Strategic Control of Time-Sharing Performance

Strategic Control of Time-Sharing Performance

Time-sharing or dividing attention among multiple tasks is an
important component of many activities such as driving and
piloting. But time-sharing performance is often observed to
degrade from single-task performance level. A better
understanding of the capability and limitations of time-sharing
is germane to the understanding of the nature of attention. It
is also most useful for designing and evaluating many daily
activities and many occupational tasks such as maintaining
aircraft stability while navigating in the cockpit. For example,
the risk of motor vehicle collision was found to be four times
higher when using a cellular telephone than when not regardless
of whether hand operations were involved. This implicated a
central limitation. The proposed research aims at a better
understanding of the strategic control of time-sharing.

Two major theoretical views on the nature of the limitations of
time-sharing are examined. Bottleneck theory hypothesizes that
attention acts as a bottleneck along the information processing
system, necessitating multiple tasks to be processed
sequentially. Resource theory hypothesizes a finite amount of
attention that is allocated among the time-shared tasks such that
when performance of one task improves due to increased priority,
the other is likely to degrade. Traditionally, the psychological
refractory period (PRP) paradigm has been used almost exclusively
to test bottleneck theory and the relative-priority manipulation
has been used to test resource theory. The proposed research
will examine the extent to which the divergent conclusions drawn
from these tests are constrained by the methodologies used.
Converging evidence from a combination of the two paradigms
should lead to a deeper understanding of the nature of attention
and its effects on performance. The results should add to an
already rather rich dual-task database. The proposed converging
operations and methodological refinements should provide a new
and powerful arena for further understanding of the attentional
mechanism. This understanding has profound implications on
activities that are as mundane as calling home while driving or
as complex as landing a packed 747 in severe weather.